Modeling Responses to Scientific Innovation

Dr. Sulloway is continuing his research on why scientists accept or reject new theories. Often scientists, in possession of the same relevant facts, nevertheless take diametrically opposed viewpoints toward theoretical innovations. The research design of this study, which is multivariate in nature, seeks to assess the role of 80 different background factors in mediating how several thousand scientists have responded to 30 highly diverse controversies in the history of science. Under this grant, Dr. Sulloway is using questionnaire data drawn from participants in three recent scientific controversies (cold fusion, continental drift, and sociobiology) to illuminate the central role played by patterns of identification with authority in mediating attitudes toward innovation. This information provides a direct test of the hypothesis that birth order, the single best predictor of the 80 considered in this study, is a powerful mediator of identification with parents, and through parents, with authority. He is also investigating the way in which scientists respond to novel claims made on behalf of spurious, difficult-to-detect, or nonexistent phenomena. By studying reactions to the "discovery" of N-rays and response to the recent claims on behalf of "cold fusion," Dr. Sulloway is highlighting the role that complex patterns of subjective influences can play in shaping attitudes toward scientific innovation.